CAREER: Generative Design of Additively Manufacturable Structured Materials with Neural Process Encoding and Geometric Artificial Intelligence

This Faculty Early Career Development Program (CAREER) project is to support research and education on the design science for additively manufacturable Architected structured materials (ASMs). Architected structured materials (ASMs) are the building blocks for creating multifunctional, intelligent matter with unprecedented properties for a wide range of needs in health, energy, and aerospace applications. Existing ASMs' design paradigms produce optimal designs under the assumption of a perfect, defect-free, ideal topology, whose properties are theoretically optimized. However, due to the ASMs' intricate topologies and manufacturing process uncertainties, defects and imperfections are inevitable in the manufactured structures, which can severely degrade the ASMs' effective properties. The project will advance the realization of manufactured-as-designed ASMs by rethinking the design representation of ASMs to address the design-for-additive manufacturing (DfAM) abstraction and AM process-induced imperfections, while understanding ASMs' architecture-process-property relations to enable the generative design of manufactured-as-designed ASMs. The resulting knowledge will: 1) accelerate the ASMs' inverse design and facilitate the on-demand functional device design automation; 2) advance AM processes innovation by elucidating the material deposition for structure formation principles; 3) provide knowledge for generative design of next-generation responsive ASMs and intelligent devices. The education and outreach objective is to create an immersive learning environment and easily accessible design tools to increase participation in DfAM and AI in engineering design. This project will support participation of vertically integrated teams (VIT), the development of a virtual reality (VR)-assisted interactive design platform, the involvement of undergraduate researchers, and the integration of K-12 and NASA outreach activities.

The aim of this research is to fundamentally understand the roles of DfAM and AM process-induced geometric imperfections, and to elucidate architecture-defect-property relations for achieving the generative design of manufactured-as-designed ASMs. This overarching goal will be achieved by: 1) deriving a unified design representation for both ASMs' topology and DfAM operations; 2) modeling the influence of process-induced imperfections on material property degradation; and 3) integrating this influence into the design loop to enable the generative design of manufactured-as-designed ASMs by developing a compositional geometric artificial intelligence (CGAI) framework. This research will transform the discovery and design of manufactured-as-designed ASMs. First, a neural-field design representation for simultaneously expressing topology and DfAM sequences. Second, statistical distributions of ASMs' geometric imperfections for modeling how AM process-induced imperfections influence the materials property degradation; Third, fundamentally understanding the intrinsic relations between manufacturing imperfections, mesoscale geometry, and macroscale mechanical properties of cellular structures to elucidate the structure-processing-property interplays for developing generative models of ASMs via generative AI methods. The education and outreach plan includes developing hands-on, interactive VR and haptic design course materials for students from K-12 through the graduate level; and increasing participation from high schools, community colleges, and the public to promote awareness of AI-enabled design, DfAM, and manufactured-as-designed thinking.